Presidential Young Investigator (PYI) Award - Interstellar Chemistry

Dr. Ziurys' Presidential Young Investigator Award will be used to study interstellar chemistry. In the laboratory she will measure transition frequencies of molecules which are potentially present in interstellar clouds but which have not yet been observed. With the rest frequencies known, she will then carry out observations to search for these molecules in selected molecular clouds known to be undergoing star formation. It is currently thought that most interstellar molecules are formed by gas phase positive ion-molecule reactions. About 50% of these reactions are exothermic. They also have negligible activation energy barriers, and they require only 2-body collisions. Thus, they can proceed rapidly in the low temperature, low density environment of interstellar molecular clouds. When stars form in these clouds, however, the physical conditions become altered. Under these circumstances, activation energy barriers are readily overcome, endothermic reactions can occur, and what is termed "shock" or "high temperature" chemistry takes place. In addition shocks and elevated temperatures can cause the destruction of dust grains and release refractory elements into the gas phase. It is evident that this "high temperature" chemistry must be important in the synthesis of molecules in star forming regions, but its exact role has yet to be determined. Dr. Ziurys' research addresses both the laboratory measurement of the properties of molecules which are potential constituents of the "shocked" regions of interstellar clouds and the astronomical observations to search for these molecules in space.